Workshop on Trustworthy Computing Program

This workshop brings together government research program managers, experienced researchers, and some new researchers in fields covered by the Trustworthy Computing program to create a set of publicly available materials an presentations that will help broaden the pool of researchers capable of proposing to the program. The program and its predecessors, the Trusted Computing and Cyber Trust programs, now fund more than 400 Principal Investigators. New researchers entering the field need to understand the research areas these programs cover, how they relate to other NSF programs, and how they relate to programs funded by other U.S. government research funding agencies.